Oceanographic Instrumentation 1991

The School of Oceanography of the University of Washington will acquire a sea-going data management system and items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the research vessels operated by the University. The University will take delivery of its new research vessel THOMAS THOMPSON during 1991 and this instrumentation will provide some of the basic scientific capability necessary to support NSF-sponsored research projects. The instrumentation will also increase the capabilities of the institution to support research and engineering activities. The instrumentation includes: -DECstation 5000 computer system and components for real-time acquisition, management, analysis, and display of large environmental and geophysical data sets, -Climate control room outfitting to better assure data quality from samples collected at sea, -CTD sensors, pressure gauges, and other enhancements for obtaining detailed profiles of seawater conductivity and temperature as a function of depth, -Scintillation counter for measurements of radio-isotope tracers and other chemical parameters, -fume hood for removing chemical fumes from the ship's laboratory -XBT system for obtaining temperature profiles in the ocean without having to stop the ship, and -Replacement autoclaves for sterilizing glassware and other tools and for preparing chemical reagents used in experiments. These will be for use ashore by all members of the School of Oceanography. The University of Washington is cost sharing in the acquisition of this equipment. The instrumentation described above will increase the capability of the University to support NSF-sponsored research and engineering projects.